Evaluative Study of Model Institutions for Excellence [MIE] Based on MIE Self-Evaluation Template [MSET]

This project will combine summative and formative evaluation techniques to apply to completed Phase 1 and ongoing Phase 2 Model Institutions for Excellence awards. The evaluative study will interpret the quantitative and qualitative outcomes and the elements of the program that led to success or failure to accomplish the goals of the MIE program. The outcome of the study will be a document describing the successes and failures of the MIE projects, the factors that led to success and failure, and a summation of the MIE projects that can be used to guide other institutions in developing models to increase participation of under represented groups in SMET undergraduate and graduate programs. This research will be of value in determining how to assess and disseminate successful models that lead to institutional change in promoting the participation in SMET careers of under represented groups.